Workshop on Optoelectronic Packaging, (August 1994, Santa Barbara, CA)

9411619 Mickelson This proposal is for sponsorship of a small workshop to be held with approximately 25-35 participants from industry, universities, and government laboratories and agencies. All participants will be involved in optoelectronic packaging. The purpose will be to try to foster discussion between packaging researchers and students, from different mother disciplines, through having them discuss specific design problems in optoelectronic packaging. Graduate students will be encouraged to attend the workshop through travel support. Such non-classroom education will enhance students' experiences through group discussions and poster exchanges. ***